NUE: Integration of Nanoscale Science and Engineering into Undergraduate Curricula

This Nanotechnology Undergraduate Education (NUE) program entitled, "Integration of Nanoscale Science and Engineering into Undergraduate Education", at the University of Cincinnati, under the direction of Dr. Thomas D. Mantei, is being funded by the Division of Engineering Education and Centers (EEC). An interdisciplinary team of faculty at the University of Cincinnati plans to incorporate nanotechnology education into the undergraduate curricula in the Colleges of Engineering and Arts & Sciences. This will be accomplished by a three-course sequence to be taken in one academic year that will form a new minor area of study focused on interdisciplinary nanotechnology.

The proposal for this award was received in response to the Nanoscale Science and Engineering Education (NSEE) program solicitation, NSF 05-543, Nanotechnology Undergraduate Education (NUE) component.